SBIR Phase I: Synergizing Braille and Science: Real-time Accessibility of Tactile Graphics in Laboratory Settings for Blind and Low Vision (BLV) Students

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to increase the participation of the underrepresented population of blind and low vision (BLV) persons in the science, technology, engineering, and mathematics (STEM) fields. Through a novel assistive technology that provides BLV individuals with multisensory access to scientific data in real time, this technology will enable access on par with sighted peers. BLV students, unlike their sighted peers, lack independent access to real-time scientific data whether in the laboratory or in the field. This inaccessibility either precludes their full participation in hands-on science inquiry, or leaves them dependent on sighted peers to access real-time data. With this project, BLV students across K-12 and post-secondary institutions, as well as BLV scientists and others interested in STEM, will benefit from a tool that makes it possible for them to work independently in laboratory situations. This innovation will make science laboratory learning and laboratory workplaces more inclusive and equitable for the blind and low vision individuals.

This Small Business Innovation Research (SBIR) Phase I project is focused on developing a 2-dimensional, hand-held, portable, refreshable Braille and tactile graphics scientific data collection tool that can be used to collect quantifiable data in real time using wireless sensors. Blind and Low Vision (BLV) students are as capable as their sighted peers in STEM yet, unlike their sighted peers, lack independent access to real-time scientific data in the laboratory. This effort seeks to address this inequity by leveraging the expertise of blind scientists and pioneers in STEM access technology to iteratively develop a interative versions of novel, blind-accessible innovations which will give BLV students, scientists and others access to quantitative data collected in the laboratory or in the field. This innovation will be optimized for the BLV by documenting usability concerns and making the necessary modifications to hardware and source-code prior to field-testing.